Integrated Program for Training in Mathematics

The aim of the University of Utah VIGRE program is to quickly immerse undergraduate and graduate students in research, to provide effective mentorship for them and for postdoctoral instructors, and to foster interchange of ideas and expertise among all three groups and the faculty.

Its aim is for all to be prepared

1. in effective communication of the ideas and applications of mathematics in a range of contexts;
2. in depth to carry out work or research creatively and independently;
3. in breadth to interact with students or subordinates, with peers and with the public;
4. for leadership in a broad range of careers, inside or outside of academia.

The program will draw larger numbers of talented high school students into mathematics through a summer program which gives them early experience in learning by discovery; followed
by a challenging honors curriculum culminating in a senior research thesis supported by summer research programs. Graduate students will pursue a year-round program which ensures timely
completion of the degree through early immersion in research and seminars, summer workshops and tutorials, and close interaction with faculty and postdoctoral fellows. Postdoctoral fellows
play an active role in all phases of the program and work closely with faculty mentors